A Probabilistic, Language-Based Security Analysis

9800785 This proposal concerns links between programming language theory and semantics and probabilistic computation, with applications to security analysis. The proposed work is to develop an analysis of cryptographic protocols based on programming languages, but using the probabilistic techniques of cryptography. This is a departure from most formal analyses of cryptographic protocols, which treat cryptographic operations as "black boxes". The proposed work will include the development of a modal-typed, concurrent programming language for defining communicating systems of probabilistic polynomial-time processes. A novel property of the proposed language is the use of probabilistic rather than nondeterministic scheduling of processes. A related notion of observational equivalence for sets of probabilistic processes will play a central role in reasoning about this language and in its applications to security analysis. The proposed research will develop methods for reasoning about observational equivalence (or some approximation to observational equivalence such as probabilistic trace equivalence or bisimulation) and use these methods to establish security properties of various protocols. The proposed framework will provide a useful analysis tool for working backwards from security properties of a protocol to derive necessary properties of underlying encryption primitives.***